Ion Atom Collisions: Correlated Systems (Physics)

The development of beams of fast bare ions in the last two decades has allowed atomic physicists to vary the coupling constant in non-trivial ion-atom reactions, and much has been learned. In atoms, the electrons provide a wide range of velocity scales, and thus there has been motivation to concentrate on developing efficient computer codes to simultaneously describe excitation, ionization, and charge transfer in a broad energy region. The method chosen by the principal investigators for such studies has been a variational expansion of the wavefunction in a truncated space of Hilbert basis functions. Until now, all work done by the principal investigators has been carried out in the independent particle model approximation. In the present work, the Forced Impulse Method, which allows the solution of the fully correlated two- electron problem, will be developed.